STTR: Improved (Gas Chromatography)/Ion Mobility Spectrometry for Chemical Process Monitoring

9523180 Arnold This research focuses on the improvement of Ion Mobility Spectrometry (IMS) with regard to sensitivity and dynamic range. The construction of selective ion gating and ultra sensitive ion collection electrodes, and formulating a new dynamic dilution approach to control source analyze concentrations are the two methodq that will be used to improve upon the specified features. These additions will yield an IMS instrument capable of 5 to 6 orders of magnitude of linear response with the additional benefit of ion source chemistry control for more reproducible spectrometry. The IMS presently performs tasks such as environmental monitoring and the detection of chemical and biological agents. When this research is completed, the new technologies will enhance the IMS performance, be integrated with other developments, and greatly expand its commercial use.